A Definitive Bell Inequality Experiment with Spin One-half Nuclei

9732459
Fry
This experiment completes an exact realization of Bohm's version of the Einstein-Podolsky-Rosen thought experiment. Correlations will be measured between nuclear spin components of the nuclei of two Hg-199 atoms created by the photodissociation of a mercury dimer with total nuclear spin zero. A novel circular polarized laser excitation-ionization technique, using a detector with near unit efficiency, will be used to observe the two atoms.